Development of a New Type of Double Enveloping Worm Gear Drive

This one year supplement to NSF Grant No. INT-8509254 between V. Simon, University of Novi Sad and Burton Paul, University of Pennsylvania approved by the U.S.-Yugoslavia Joint Board for Scientific and Technological Cooperation in May 1988. Supplemental support is recommended to complete the joint research project on the development of a new type of double enveloping worm gear.